A Multi-Sensor Downhole Gamma-Ray Logging Tool for Core-Log Integration and Universal Downhole Telemetry Module for Third-Party Logging Tools

9531279 Pirmez This project by researchers at Lamont-Doherty Earth Observatory of Columbia University in New York will develop a high-resolution gamma-ray logging tool for use in ocean drilling, and specifically for studies carried out onboard JOIDES Resolution, the deep-sea drilling vessel operated on behalf of the international partnership of the Ocean Drilling Program, of which NSF is the lead partner. This development of improved resolution of loggilg provides a key element for improving fine-scale correlation between recovered cores and precise depth in section, and is of special importance to detailed studies of climate and ocean history. It is anticipated that the new design will improve resolution by at least a factor of 2-3 over present technology, allowing recognition of climatically-induced cycles in the borehole in many regions where this is not presently possible. The combined development of a "universal" downhole telemetry system will make the system compatible with the existing shipboard logging system on JOIDES Resolution, and the telemetry system will be compatible with other systems, expanding the capability of JOIDES Resolution to run multiple-tool logging experiments. ***